U.S.-Japan Cooperative Research: Generation and Detection of Transient Metal Containing Molecules

9314913 Steimle This award supports a two-year cooperative research project between Professor Timothy Steimle, Department of Chemistry and Biochemistry, Arizona State University, and Professor Shuji Saito, Institute for Molecular Science, Okazaki National Research Institutes, Okazaki, Japan. In addition, two graduate students from Arizona State University and several scientists from Tokyo University and Shizuoka University will participate in the project. This collaborative effort is motivated by both practical and fundamental scientific interests. Transient metal containing compounds are important elements in processes such as rf- induced chemical etching and chemical vapor deposition. The proposed millimeter wave and optical spectroscopic detection schemes will be sensitive, non-invasive means of monitoring and controlling the chemistry of such systems. In addition, there are many fundamental scientific problems associated with metal containing radicals, not the least of which is their electronic and structural characterization (i.e. bond lengths and angles, electronic state distribution, m.o. description, etc.) The U.S. and Japanese teams have complementary theoretical and experimental expertise. The scientists at Okazaki have diode laser spectroscopic capabilities; the Tokyo University scientists have Fourier transform microwave capabilities, and the Shizuoka University group has millimeter wave capabilities. Cw-dye laser optical spectroscopy and pump/probe microwave optical double resonances of molecular beam samples will be performed at Arizona State University. ***